Development of Accelerator Mass Spectrometry InstrumentationAt Prime Lab

The accelerator mass spectrometry system at the Purdue Rare Isotope Measurement Laboratory will be improved significantly, to enhance the capability of studying particular cosmogenic radionuclides. This will provide a unique service for a broad user community in a number of fields of science.